REU: Open Ocean and Global Change Research Experiences at the Bermuda Biological Station

This award supports a Research Experience for Undergraduate (REU) Site proposal to provide research experiences for selected undergraduates in oceanic and global change research associated witj the Bermuda times series site. It will acquaint the students with the excitement and opportunities of academic research and encourage them to pursue graduate studies and a career in ocean sciences.//